Algebraic Structures of Mathematical Physics

Abstract

Award: DMS-0805785
Principal Investigator: Alexander A. Voronov

The goal of the project is to solve a number of important
problems in the rapidly developing fields of Topological Field
Theory (TFT), Symplectic Field Theory (SFT), and Gromov-Witten
theory. The first part of the project will span from higher
category theory, to cobordisms and to quantum field theories. The
plan is to place cobordisms of manifolds with corners within an
appropriate n-category framework and describe TFTs as n-functors
from the n-category of cobordisms to that of n-vector spaces, as
well as show that physical models, such as gauge
(Wess-Zumino-Witten), Yang-Mills, Chern-Simons, Seiberg-Witten
theories, and sigma-model may be described as such higher
TFTs. The second part of the project consists in bringing
together algebraic geometric and symplectic methods to construct
a full solution to the so-called Quantum Master Equation in
Gromov-Witten theory. This equation describes the topology of the
moduli spaces of holomorphic curves and relevant algebraic
structures, providing important invariants in symplectic and
algebraic geometry. The third part of the project aims at lifting
Gromov-Witten theory to the (Floer) chain level and developing a
combinatorial version of Gromov-Witten theory, thus bridging the
areas of enumerative algebraic geometry, symplectic Floer theory,
and graph homology. The last, SFT part of the project will result
in constructing a new compactification of the moduli space of
Riemann surfaces, which would govern the algebraic operations and
invariants arising in SFT. This compactification will be an SFT
analogue of the Deligne-Mumford compactification relevant to
Gromov-Witten theory.

The project aims at discovering and studying new algebraic
structures in topology suggested or motivated by mathematical
physics, in particular, string theory, Symplectic Field Theory,
and Gromov-Witten theory. Another long-term goal is to build a
bridge between several mathematical cultures working on problems
related to mathematical physics. These cultures include
algebraists, algebraic topologists, symplectic geometers,
algebraic geometers, and geometric topologists, to name a
few. The algebraic structures is a mathematical reincarnation of
such fundamental structures of physical theories as correlators
and relations between them (Ward identities). Understanding this
structure is crucial for understanding the physical theory. From
the point of view of mathematics, the project leads to new
mathematical ideas, new algebra, geometry, and topology,
motivated by physics.